Stress and Growth in the Heart, Lung and Blood Vessels

The dynamics of growth and change in heart, lung, and blood vessels will be studied in response to variations in blood pressure and flow. The aim is to understand the relationship between growth and stress to control health problems and possibly to develop new manufacturing methods for artificial tissues. The study is based on previous results concerning residual stress in tissues and the mechanisms by which these stresses arise. The research is likely to give fundamentally important information about the way in which imposed stress determines the rate of tissue growth.